Mathematical Sciences: Mathematical Problems From Nonlinear Dispersive Oscillations, Hele-Shaw and Stokes Flows

9622810 Tian The main themes on the project are I. Nonlinear Dispersive Oscillations, II. Hele-Shaw Flows and III. Stokes Flows. In project I, the main purpose is to analyze the generation and propagation of oscillations described by the defocusing nonlinear Schrodinger equation as dispersion goes to zero. Microscopically, the oscillations propagate according to the Whitham equations. The proposed method is a construction of solutions of the Whitham equations via a hodograph transform. Both projects II and III concern the motion of an interface between a more viscous fluid and a less viscous fluid to be regarded as invicid. The viscous fluid is governed by Darcy's law in the second project, and by the Stokes equations in the last one. The emphases are on the types of singularity formation in the presence of surface tension, Hele-Shaw and Stokes flows in dimension 3. The proposed methods will be both analytical and computational. %%% Nonlinear dispersive oscillations can be observed in collisionless shocks in plasmas and optical shocks in optical fibers. What is fascinating about this phenomenon is the phase transition between different regions. The goal is to understand the phase transition from non-oscillatory to oscillatory regions. Both Hele-Shaw and Stokes flows are flows in porous media. It is well known that the interface will be unstable when a less viscous fluid drives a more viscous fluid. This instability is responsible for water flooding of oil wells, and is of obvious importance to oil reservoir engineering. The aim is to understand this instability in detail. The principal investigator proposes to use some new analytical and numerical techniques to study these problems. ***